U.S.-New Zealand Cooperative Research: Contractible Edges in 3-Connected Graphs

This award provides support for Dr. Robert Hemminger of the Department of Mathematics at Vanderbilt University to make two trips to New Zealand over a two year period to collaborate with Prof. Derek Holton and Dr. Robert Aldred of the Department of Mathematics and Statistics at the University of Otago in Dunedin. The research will be focused in the area of graph theory, specifically, problems dealing with contractibility and connectivity in graphs. This project draws upon the theoretical expertise of the investigators working on the topic of contractible edges. Over the past few years, this collaboration has resulted in seven publications in the area of graph theory. The visit of Dr. Aldred to Vanderbilt University, in early 1993 to continue the collaboration, is supported through the New Zealand Government.